The Southwest Archaeological Obsidian Project

With National Science Foundation support Dr. Steven Shackley will continue his work to locate and characterize obsidian deposits in the U.S. Southwest. The research will proceed in several stages. First he will use energy-dispersive X-ray fluorescence analysis to convert semiquantitative data from materials already collected into quantitative form. This will aid future analysis and facilitate interlaboratory comparison. Secondly he will work to discover the location of other obsidian sources which, through analysis of their byproducts, are known to have been used by prehistoric peoples. The work will be focussed in Arizona and western New Mexico and will proceed through the use of regional geological maps and interview with local rock collectors. Because obsidian is often found in alluvial deposits, he will search for such sources as well. Finally Dr. Shackley will collect samples from known sites to determine the degree of intrasource variability. This will help him to determine the degree of confidence with which archaeological artifacts can be tied to individual sources. Obsidian, or "volcanic glass" is intensively studied by archaeologists for two reasons. First, when fractured it forms and maintains extremely sharp cutting edges and therefore was prized by prehistoric peoples for making tools. It is often found in archaeological sites in many parts of the world. Secondly different sources usually have descrete chemical signatures and elemental analysis often permits one to tie a sample to a specific source area. Through analysis of archaeological obsidian it is often possible to reconstruct prehistoric patterns of trade and movement. This in turn provides insight into subsistence, social and political organization. For this process to work however it is essential to locate and characterize all source areas and this goal lies at the core of Dr. Shackley's work. This project is important for several reasons. It will improve and expand a data base which will be widely be used by archaeologists. It will also shed light into the lifeways of prehistoric inhabitants of the United States Southwest.